Collaborative Research: Multivariable Moments and Factorizations and Other Problems in Analysis

ABSTRACT

PIs Geronimo and Woerdeman will continue their investigations into
factorization and extension problems. In particular we hope to
develop a constructive proof of the celebrated Ferguson-Lacey
extension theorem and build on it using the results we have
recently obtained on the spectral factorization of positive two
variable trigonometric polynomials. We plan to investigate in more
detail fast algorithms for computing the structured matrices that
arise from the two variable trigonometric moment problem as well as
study the orthogonal polynomials that arise in this case. The PIs
also plan to continue their individual investigation into the
important problems arising from quantum computing and the
asymptotics of solutions to 2nd order difference equations.

The types of structured matrices under study here arise in many
problems of practical interest such as two variable
auto-regressive models and two variable filtering. The PIs will
try to recruit more undergraduate and graduate students to help in
these problems as well as give courses and lectures at conferences
to increase the impact of their efforts. In order to make the
intellectual merit of the proposal apparent the PIs will continue
to publish their results in well respected journals, and also
disseminate them via the PIs' homepages, preprint servers such as
arXiv, software sharing websites, etc.